Presidential Young Investigator Awards

A PYI award will support research on surface degradation of brittle materials as well as progression of the damage to the point of catastrophic instability. Experimental studies and non-destructive testing will be correlated with computational and theoretical research. The results will later be extended to surface damage and edge delamination problems in advanced composite materials.